Nonlinear Approximations for Inverse Problems

This project aims to develop a new class of methods for solving inverse problems in their different modalities, for example to develop new methods for non-destructive evaluation, such as X-ray Tomography, Magnetic Resonance Imaging (MRI), Synthetic Aperture Radar, Diffraction Tomography, Electron Microscopy, and many others. In these problems, data may be collected directly in the Fourier domain (as in MRI), or may be transformed into the Fourier domain for the purpose of image formation (as in X-ray Tomography or Electron Microscopy). In all cases, the image resolution is controlled by the largest wave-number present in the measured data. In order to minimize the distortion due to Gibbs phenomenon, current imaging methods either collect data in a large enough area of the Fourier domain or window the data to force an artificial decay. It can be shown that current methods require collecting more data than necessary or negatively impact the resolution near spatial singularities of recovered functions of interest. These singularities are, typically, the most informative part of the final image. In contrast, this proposal relies on nonlinear, near optimal approximation by exponentials to extrapolate the available Fourier data, also yielding a near optimal rational representation in space. This approach not only improves the resolution near singularities and achieves a near optimal performance, but also detects the level of noise in data and provides a practical technique for signal/noise separation. These new algorithms already yield a significant improvement over existing techniques in one-dimensional problems and this project intends to extend the approach to problems in two or three dimensions. Such an extension is highly nontrivial since the mathematical tools used in one dimension are only of limited use.

Inverse problems arise in a wide variety of scientific and engineering disciplines as a way to analyze biological or inorganic specimens, analyze manufactured devices for defects, perform remote sensing or geophysical exploration among many other applications. In all of these modalities, from processing multiple radar data to biomedical imaging such as MRI, the collected data is processed by algorithms implementing the solution of an inverse problem based on a specific mathematical model. The investigators propose a method of developing and algorithmically implementing new mathematical models applicable to many, if not all, of these problems. The reason for such wide applicability is the fact that in the new mathematical models the functions of interest are represented with a near optimal number of parameters, thus significantly improving the recovery of information from the measured data. The mathematical and practical significance of this project as well as its challenge lies in extending the methods developed by investigators in one dimension to multiple dimensions. Since techniques of non-destructive evaluation play a vital role in natural sciences, engineering, medical diagnostics as well as such visible applications as airport security, we expect a wide impact of these new mathematical models based on nonlinear approximations. The numerical methods developed within this project should provide scientists with computational tools to efficiently solve problems beyond the capabilities of many of today's algorithms.